Connection to New Mexico TechNet

9312213 Nelson This project connects Albuquerque Academy to NSFNET through New Mexico TechNet over a 56 kbps line. Faculty and students at the west campus will benefit from access to the resources of the Internet, including libraries and supercomputers. In addition, they will be able to communicate and collaborate with colleagues at other institutions in pursuit of research and educational projects. The award provides partial support of the project for two years. ***